Dissertation: Acoustic and Articulatory Manifestations of Consonant Weakening

Although consonant weakening or lenition is a common phenomenon, no comprehensive explanation exists. If weakening is a decrease in the duration and magnitude of consonant production, as it has recently been described, quantifying these changes should clarify the phenomenon. Duration is easily measured with acoustic analysis, but other methods must be employed for magnitude. This study will use dynamic electropalatography (EPG) to gather data on the magnitude of linguopalatal contact over time. Stress, position-in-word, and speech rate will be manipulated to determine their effects on the production of consonants in American English and Spanish languages with different types and degrees of phonologized weakening. Differences between phonetic and phonologized weakening will be assessed and a contact-based metric to differentiate them will be provided. The possibility that duration and magnitude varying separately~an account for the range of weakenings for a single segment (e.g. k weakening to either g or x ) will be explored. This study will provide new insight into the nature of connected speech processes, add to existing knowledge about speech rate variations, and demonstrate the importance of prosodic structure to consonant articulation. Methodologically, it will advance techniques in applying EPG data to our understanding of acoustic and phonological patterns.